Social Stratification in Eastern Europe after 1989: Data Preparation and Analysis

9310395 Szelenyi This project is the data-preparation phase of a set of large scale comparative surveys examining the effect of the transformation of Eastern Europe to post-Communism in: Bulgaria, the Czech Republic, Hungary, Poland, Russia, and Slovakia. In each country, data have been collected from a general population sample of approximately 5,000 persons and a sample of 2,000 members of the former and current elite, in order to test theories regarding the effect of the change to post-Communism on recruitment into the elite and on processes of mobility more generally. The present project will prepare the complex, multi-nation, multi-language data for public use and will begin statistical analysis. %%% This research will test several scientific theories of social and political change, as well as providing a rich data set that will be used by many researchers in several different social sciences. In addition, this project substantially increases the knowledge base for policy decisions concerning the radical transformations currently in progress in these six nations and in the other parts of the former Soviet bloc. ***